Genetic Analysis of the Photosynthetic Reaction Center in Bacteria

The bacterial reaction center complex mediates a series of efficient electron transfer reactions resulting in the conversion of light into chemical energy. This pigment-protein complex is the only membrane protein whose structure has been determined to atomic resolution. While the highest resolution structural data (2.3A) is available from the reaction centers of Rhodopseudomonas viridis, a system for the expression of genetically modified reaction centers in this organism is not available. We have been characterizing a heterotrophic strain of Rps. viridis which will be used to develop such a genetic system. The puf operon of Rps. viridis (encoding the beta and alpha subunits of the light haveresting complex and the L subunit, M subunit, and cytochrome subunit of the reaction center) will be deleted from the Rps. viridis chromosome. A plasmid containing a copy of the puf operon will be used to complement this chromosomal deletion. To efficiently grow the large volumes of Rps. viridis required for spectroscopic and crystallographic studies of genetically engineered reaction centers, culture conditions will be optimized for the dark growth of Rps. viridis in a bench fermentor. The development of this system will allow the modification of pigment-protein binding interactions throughout the reaction center by site-directed mutagenesis of the Rps. viridis structural genes., followed by the crystallographic and spectroscopic characterization of these altered reaction center complexes. %%% The insights provided by the Rps. viridis reaction center system will provide a more detailed understanding of substrate recognition/binding requirements in membrane proteins and electron transfer in biological systems.